A Symposium in Honor of Peter W. Hochachka," Toronto, Canada, January 4-8, 2003

The symposium (scheduled for the SICB meeting in Toronto, January 4-8, 2003) has a number of related goals. It shall honor Peter W. Hochachka for his numerous, pioneering and decades-long contributions to the study of biochemical adaptation to the environment. The symposium shall feature historical perspectives and the latest developments in areas encompassed by the field of biochemical adaptation to the environment. It shall provide zoologists an overview of how, over the past 30 years, the field of adaptational biochemistry has grown from an infant, highly speculative field into one that continues to be fascinating and dynamic, but is now mature, sophisticated, and highly influential. The symposium shall demonstrate that the August Krogh Principle (choosing the species best suited to the scientific question of interest) is alive and well and illustrate the broad range of techniques including nmr spectroscopy, molecular biology, and comparative phylogenetic approaches, used in studies of biochemical adaptation. The symposium shall illustrate how tightly interwoven this discipline has become with various subdisciplines in ecology and evolutionary biology, i.e., that it has become one with the rest of the biological sciences. The symposium shall have 10 speakers who will each give 30 minute presentations. Their lectures shall be written up for publication in American Zoologist.